Dissertation Research: Aurignacian Lithic Economy in the Vezere Valley

9311880 White Under the direction of Dr. Randall White, Mr. Brooke Blades will collect data for his doctoral dissertation. He will study three archaeological collections which are housed in French institutions and are attributable to the Aurignacian culture of Vezere Valley in Southwest France. These materials are all from carefully controlled excavations at well dated sites and span the major interval when these early modern humans inhabited Europe and the Near East. Mr. Blades will conduct several studies. First he will examine the technologies by which these tools were produced and shaped to produce their final form. In particular he is interested in the intensity of utilization of raw material and the efficiency with which it was used. Secondly, based on visual analysis he will attempt to match the raw material - mostly flint - to the source of origin and in this way reconstruct patterns and extent of prehistoric movement. Finally, in collaboration with researchers at the University of Missouri, he will obtain trace element data on one subseries to characterize source areas and chemically match excavated artifacts to them. The goal of Mr. Blades work is to understand the subsistence strategies practiced by Aurignacian peoples. During the millennia when the Aurignaican occupied Western Europe, glaciers advanced and retreated and climate changed dramatically. These shifts have been reconstructed through the paleoenvironmental record and Dr. Blades wishes to understand how Aurignacian subsistence and ranging patterns varied accordingly. This research is important for several reasons. The Aurignacians are the earliest anatomically modern people in Europe and this work will shed new light on their cultural competence and strategies. It therefore sets a baseline against which later accomplishments can be judged. The work also increases our understanding of human- environment interactions and will show how people with relatively simple technologies adapted to a rapidly and markedly changing environment. Finally the project will contribute to the training of a promising young scientist. ***